AMC-SS: Noise-Induced Transitions in Multiscale Systems

The proposed research is an attempt to understand the effect
of small noise on bifurcations in dynamical systems.
While bifurcations involve sharp changes in behavior, noise has a smoothing
effect (the probability density function solves a parabolic PDE,
rather than a transport equation).
It is this competition between dominant bifurcative behavior
and small noise which is of interest to us. We seek to illuminate
this competition by considering a number of specific problems.
We in particular seek to study canard phenomena (which is
a combination of bifurcation and multiple scales), two-point
motion near a homoclinic orbit, and behavior of certain higher-dimensional
systems.

One of the central themes in applied mathematics is the problem
of modelling evolving behavior. One of the main
tools for doing so is differential equations; the theoretical
underpinnings of differential equations are mathematically
attractive, and it is fairly simple to convert qualitative
effects into the vector fields which govern ODE's.
An honest assessment of any behavior must, of course, also include
noise. Usually this noise is small enough to have negligible effect, but in certain
situations, even small noise may dominate the behavior of a system.
Our interest is in these situations where noise causes macroscopically
visible random transitions in a dynamical system.
By means of certain carefully-chosen examples, we seek to
understand a number of different phenomena where such
random transitions occur. The specific equations we study
appear in a number of areas: biology, the study of ocean currents,
and materials science.